Modelling Forest Growth and Optimizing Timber Harvest Utilizing Microcomputer Based Geographic Information Systems Technology

The proposed research intends to develop a highly integrated package that will allow the forest manager to use forest stand information contained within a geographic information system (GIS), as input into a forest growth and yield model (FGYM). Spatially oriented projections of future stand volume will be created for incorporation into the GIS. The projections will also be used as input into a timber harvest optimization routine (THOR). The optimization routine will give the forest manager the economically optimum and scheduling solution that meets mill, harvesting equipment, and personnel constraints. This package will be microcomputer based and rely on the Erdas 'GISMO' GIS modelling language. Initial program development will focus on the Great Lakes region. The program architecture will be robust, thus permitting export to other forest regions and to agriculture.